Apple Functional Genomics

Abstract
The overall goal of this NSF project is to establish structural tools for apple genomics.
The apple, Malus x domestica Borkh., is the most important deciduous tree fruit crop
grown in the United States. This project will focus on developing structural genomic
research tools with emphasis on flowering, fruiting, and pathogen response in apple.
The first phase of this project is to construct an expressed sequence tag (EST) database
of 120,000 sequences from flowering and fruiting tissues, and from tissues responding to
pathogen infection, specifically to the bacterial pathogen Erwinia amylovora (the causal
organism of fire blight disease) and to the fungal pathogen Venturia inaequalis (the
causal organism of apple scab disease). These will then be used to generate a set of
30,000 unigene clones that will be subjected to 3' sequencing. An apple genome dataset will be
generated and integrated into a national Rosaceae Genome Database. An
educational and outreach component of this project will involve developing web-based
modules for use in educating high school teachers and students on the concepts
structural genomics.